Square Integrable Automorphic Forms: Liftings and Arthur's Conjecture

Abstract
Gan

The investigator proposes to study arithmetic questions arising in the
theory of automorphic forms in the context of the Langlands program.
One such problem is the construction and
classification of arithmetically interesting cusp forms on reductive
groups, and relating them to certain influential conjectures of Arthur.
The investigator intends to exploit the exceptional theta correspondence,
as well as some recent generalizations of theta correspondences, for the
construction of some of these cusp forms. He is also interested in
exploiting p-adic methods for the construction of classical automorphic
forms.

The theory of automorphic forms
is one of the main themes of modern mathematical research. Besides being
a beautiful subject in its own right, it is intimately connected with
other important areas of mathematics such as number theory (the study of
properties of numbers, with applications to cryptography) and
representation theory (the study of symmetries, with applications to
physics). Often, it has surprising applications to concrete problems, such
as the construction of Ramanujan graphs which are of great interest in
communication and network theory. The investigator's research is aimed at
elucidating the connections of automorphic forms with number theory and
representation theory.